RUI: Projectile Fragmentation Studies in Heavy Ion Reactions (Physics)

This grant will support nuclear physics research by a faculty member and several undergraduate students at the State University of New York at Geneseo for three years. Experiments to determine the precise nature of nuclear reaction mechanisms involving heavy ion projectiles will be carried out at a large university nuclear physics laboratory, the University of Rochester, during the summer months. The data analysis will be carried out during the academic year at Geneseo. Earlier data from experiments at Florida State University will also be interpreted within the scope of this grant. The grant is part of the NSF Research in Undergraduate Institutions (RUI) program.